Theory For Diffuse Matter Astrophysics

9401348 Watson Dr. Watson will continue his theoretical research on the creation and transport of maser radiation in diffuse astrophysical environments. The results will be applied to interpreting the observations of star-forming regions, of circumstellar environments, and of the diffuse medium in other galaxies. Delineating the characteristics of maser radiation from gaseous, Keplerian disks, and other geometrical configurations will be a central topic. Calculations for the polarization properties needed to infer the relationship between the magnetic field and the gas at the highest densities will also be performed. Astronomical phenomena that involve the dense molecular gas, such as star formation, will be better understood as a result of this research.